ARI: Acquisition of Instrumentation for Non-destructive Testing with Spatial Resolution

9512327 Lush This is a project to establish a modern laboratory for the non-destructive characterization of the optical and electrical properties of materials and solid state devices. The tools to be acquired are (1) a CCD-camera-based spectral imaging system to observe luminescence and reflected light with spatial resolution; and (2) a Kelvin probe station that measures the spatial dependence of surface potentials and of surface and bulk electronic states in materials and devices. Establishment of this laboratory (1) fills a void in the ability to properly characterize materials and devices fabricated in laboratories under existing research projects; (2) allows research in novel techniques for the characterization of CdTe/CdS polycrystalline, thin-film solar cells (and other thin films); (3) supports development of advanced techniques for the non-destructive testing of optical and electronic materials; (4) provides research training for graduate and undergraduate students in solid state physics, materials, image processing, and class selection; and to (5) attract underrepresented minorities (Hispanics and women) to pursue both undergraduate and graduate degrees in science and engineering.